Maryland Alliance in Information Security Assurance

This project provides the faculty from Maryland Alliance in Information Security Assurance (MAISA) with the training, education, and laboratory expertise and equipment needed to create and teach courses in ISA and establish appropriate program in ISA at undergraduate and graduate level in their respective universities. Towson University (TU), an NSA CAE since May 2002, has already developed courses, programs and special labs in ISA at both graduate and undergraduate level. With the help of this project TU will disseminate its own experience and specialty in ISA throughout higher education in Maryland. The workshops are the primary tools for preparing other faculty for implementing ISA courses and curriculums at their universities. TU faculty is qualified to offer the workshops and has access to international experts in the field to invite them to give some of the workshops. The project also funds members of MAISA to fully develop ISA related courses and programs at their own institution.